Damage Based Design Approach for Structures Subjected to Earthquake and Other Dynamic Loads

PI: George Lee, SUNY Buffalo

This project is aimed to explore a new design concept on damage based design for highway
bridges to resist earthquake ground motions and other dynamic loads. This is a jointly supported
pilot study by NSF (Division of Civil and Mechanical Systems) and FHWA (Turner Fairbanks
Highway Research Center) to develop new bridge design principles and criteria for future
applications.

In this pilot project, proof-of-concept study is carried out, both analytically and experimentally
on a structural component by examining the damage initiation and accumulation process under
selected input earthquake ground motions. The PI intends to show that seismic performance of
bridges may not be satisfactorily described by using the quasi-static approach or based on
behaviors under cyclic loading conditions. Many structural damages are results of combined
failure modes (strength, deformation, stiffness, low cycle fatigue, etc.). They can only be
understood based on principles of structural dynamics of M-DOF systems. Damage based
performance criteria are important foundations for the Bridge of the Future.